Symposium: Celebrating Women in Analytical Chemistry (ACS); Boston, MA; August 18-22, 2002

Professor Jeanne Pemberton of the University of Arizona is supported by the Analytical and Surface Chemistry Program and the MPS Office of Multidisciplinary Activities for a symposium entitled "Celebrating Women in Analytical Chemistry" to be held in conjunction with the American Chemical Society National Meeting in Boston MA August 2002. The meeting will present outstanding scientific achievements by women in analytical chemistry from academic, industrial and government laboratories.